Multi-Component Modeling of Pleistocene Climate

The climate system responds linearly to Milankovitch forcing at the precessional and obliquity periods of earth's orbit. But the dominant periodicity of the climate system is in the eccentricity band, where little forcing is apparent. Thus the response of climate at these time scales is highly nonlinear and probably involves the complex interaction of feedbacks between various components of the earth-ocean-atmosphere- cryosphere system. This proposal requests continued support to develop and test multi-component climate models. The PI wishes to: 1) develop a coupled atmosphere-ocean model which has components which are sufficiently simple that their stability in the climate system can be investigated; and 2) to utilize high- quality oxygen isotopic records to test the general properties of slow response, ice sheet models. The objective of this study is to differentiate the trends in the Pleistocene climate records which are due to internal nonlinear response from those which are the direct result of Milankovitch external forcing. This research is important because it has a direct bearing on our understanding of the complex linkages between the various components of the climate system.